Collaborative Research: EAGER: Fueling a Virtuous Cycle Between Cognitive Modeling and Quantum Computing

Human decision making involves complex information processing under uncertainty and rapidly changing goals, contexts, and environments. Traditional computational models often fail to capture these interactions, leading to unexplained behavioral patterns and perceived inconsistencies that limit scientific understanding and constrain applications that rely on interpretable models of human decision making. This project explores a computing driven approach that uses quantum probability theory as a mathematical framework to represent these interactions more naturally. By developing scalable computational techniques and investigating how emerging quantum hardware can support this new class of cognitive models, the project aims to advance the science of human cognition, and foundational research in quantum computing broadening the range of real world problems that future quantum systems can address. The work supports national priorities by strengthening foundational research in quantum computing, enabling new interdisciplinary applications, and training students in an emerging area that connects computer science, cognitive science, and quantum technologies.

The project develops a multi dimensional open system model of cognitive processes, where quantum dynamics are influenced by interactions with an external environment, and investigates how to execute and scale this model using both classical and quantum computing resources. The research includes three components: (1) designing a unified computational modeling framework that captures probability judgments, choices, and response times (2) creating algorithms and simulation methods that exploit features of current quantum devices as functional elements to support open-system cognitive models, and (3) developing co design techniques that integrate quantum hardware, classical simulation, and system level optimizations for large-scale execution. These activities aim to establish new computational foundations for high dimensional cognitive modeling and to identify architectural and algorithmic principles that can guide future quantum enabled applications.